Standards and Curriculum -- A View for the Nation: A Mathematics Conference to be Convened in Park City, Utah, Summer, 2004

The National Council of Teachers of Mathematics (NCTM) is convening the state supervisors of mathematics, a group of mathematicians, and a group of mathematics education professionals to examine the mathematics standards from all states and territories that have such standards in order to study the common elements and the critical differences. The work will be done in Park City, Utah in conjunction with the Park City Mathematics Institute in the summer of 2004. Proceedings will be published in 2005 and are intended to inform the work of curriculum developers and publishers and to provide insight into the K-12 curriculum by two- and four-year colleges and universities.